Mathematical Sciences: Workshop on Applications of Algebraic Geometry, San Juan, Puerto Rico; January 7-12, 1990

The subject of this workshop is the application of algebraic geometry to information theory with emphasis on the theory of error correcting codes. The workshop is to be held at the University of Puerto Rico, San Juan, during the time period January 7-12. The purpose of the workshop is to bring together experts from both areas to learn and discuss the possible new avenues of further progress. Information theory, especially the theory of error correcting codes, is used to detect and correct errors in the electronic transmission of data. This theory is important for high speed communications and computer systems. The aim of this workshop is to apply the mathematical theory of algebraic geometry to the information theory.